Norwalk Community College CSEMS Scholars for Excellence

Norwalk Community College is awarding annually twenty-four scholarships for a total of 96 scholarships over the four-year project. Awardees are enrolling full-time in one of the CSEMS eligible fields of computer science, computer technology, engineering, engineering technology or mathematics. The recipients of the scholarships are financially needy and academically talented students many of whom are being drawn from historically underrepresented groups. The over 200 business and industrial establishments making up a large and diversified research and industrial center surrounding the institution are committed to providing summer internship experiences for the CSEMS scholars.